Replacement of Transmission Electron Microscope and X-ray Microanalysis Unit.

Replacement instrumentation is proposed for campus-wide research and student training on the St. Paul campus of the University of Minnesota. The TEM replacement sought is an analytically configured TEM with microprocessor controls, electronic image capture and analysis capabilities, and a light element detector and analyzer. On-going student training and research capabilities would be greatly enhanced by state-of-the-art instrumentation. Current research efforts, with state and national priorities, benefiting immediately from the proposal are: a) Soil chemistry and physics related to atmospheric acid deposition and pesticide residues; b) Wood decomposition and bioprocessing of lignin removal for paper product; c) Nitrogen fixation by plants to reduce fertilizer needs; d) Forest water quality and applied ecology; e) Development and disease resistance in plants; and, e) Food quality and structure research.